Building State Representative Samples by Merging State Administrative Data with National Longitudinal Data to Study Transitions from High School to College

Abstract

DRL - 0839209
Building State Representative Samples by Merging State Administrative Data with National Longitudinal Data to Study Transitions from High School to College

LoGerfo, Laura
National Center for Education Statistics
U.S. Department of Education

This project augments an NCES data collection effort for the High School Longitudinal Study by including 150 additional schools in up to 10 selected states to create state representative samples of at least 40 schools in each state. NCES will create a contract with a survey organization to collect survey data from students in about 800 schools starting at the 9th grade and following them to age 26. The student, teacher, and parent survey data will be merged with state administrative data. Thus the final data set for these states will include detailed longitudinal data on student education histories, test scores, courses, demographics, and other survey information about parents and teachers. In some of the states the student data will be linked with detailed teacher data.

The purpose of this augmentation is to provide support for additional schools to create state samples. NSF will also be involved in planning for future surveys of these students as they reach college age.